Connecting Researchers in Sharing and Re-Use of Research Data and Software

Open science practices have gained widespread adoption, globally, with the help of federal funding and
publisher policies, as well as the increasing visibility and growing awareness of the value of sharing
work. This has been largely evident in light of the current COVID19 pandemic, with data sharing driving
many areas of research, and open software resources must evolve to meet the needs of researchers. To meet the emerging demands and growing requirements of the research community who need support for both data and software sharing, Dryad and California Digital Library partnered in 2018 and Dryad and Zenodo partnered in 2019. These partnerships have allowed for the three organizations to re-think the data and publishing processes, explore ways for data curation, software preservation, and for output re-use to be tied together more seamlessly.

This project is a one-day, invitational workshop bringing together researchers and adjacent community members with diverse backgrounds to discuss needs, challenges, and priorities for re-using research data and software. The goal of the meeting is to develop pathways for consistent engagement with individuals and groups across the diverse scientific disciplines in order to be connected with and responsive to researchers' needs and goals. Meeting topics include dataset re-use, deposition guidance, curation standards and requirements, integrations and relationships between data and code, and advocacy and adoption. The anticipated outputs are a set of requirements and needs to better enable data and software sharing and re-use.